Collaborative Research: Spatiotemporal Fractional Modeling of Blood-Oxygen-Level Dependent Signals

Understanding the brain in the context of its interactions with the world is key to assessing its dynamics in health and disease states. Functional magnetic resonance imaging (fMRI) technology is able to track blood-oxygen-level dependent signals over time and serve as a proxy to neural activity. Current approaches have limitations, as they assume that the interdependence between distinct brain regions is constant throughout recording periods. These approaches also assume that the brain is an isolated system that does not consider outside stimulus. To capture the highly complex dynamics and to enable the understanding of the neural basis of human cognition this research project will develop new data analysis methods for processing brain activity to explain the relationships involved in attention, learning, memory, decision-making, and language. This multidisciplinary effort will also enable the training of a new generation of engineers and clinicians, with particular emphasis on underrepresented groups, who can use the new data analytics to aid them during decision-making to assess the brain’s health enabling earlier diagnostics. The results of this research will have a great impact on healthcare and benefit the U.S. economy and society.

To capture the highly complex spatiotemporal brain activity, this grant supports development of a model-based approach that captures the non-stationarity and fractal behavior of the brain dynamics. As a consequence, it will unveil dynamical characteristics that can be used to quantitatively and qualitatively measure how well an individual is doing in a particular task (e.g., attention/memory). Furthermore, the model-based approach in this project lays down the framework to perform control where quantitative measures can be used to establish control objectives regarding success in performing a given task. Unlike currently employed short-range memory models, this project focuses on a generalized mathematical framework that captures the degree of a memory of brain activity. Thus, the research will provide new insights and information about the brain organization and cognition that may fundamentally change the way one examines neuro-related data.